ADVANCE Fellows Award: The Evolution of the Quasar Luminosity Function

AST-0340837
Kennefick
Intellectual Merit: Dr. Kennefick is awarded NSF funding to study the evolution of the quasar luminosity function and to conduct two new multicolor surveys for quasars. Using publicly available data, several large quasar surveys will be mined to construct a quasar luminosity function that is internally consistent, and to select quasar candidates over the peak of quasar activity and at the highest redshifts. Follow-up observations of the candidates will be undertaken at the National Observatories, and through collaborations. This program will advance our knowledge of quasars themselves, their relation to normal galaxies, and structure formation in the early universe.

Broader Impact: To accomplish the scientific goal, Dr. Kennefick will use large digital optical and infrared surveys, in a manner that demonstrates the potential of the National Virtual Observatory (NVO) to facilitate frontline research. The geographic region in which the research will be undertaken has very few astronomers, and few women in particular. Hence this program provides recruitment and mentoring opportunities that will enhance the quality and diversity of the science workforce.